Technician Education Materials in Plasma Technology; TEMPlaTe

This project is creating new materials, courses, laboratories and faculty professional development workshops in applications of plasma technology in nanomanufacturing. Specific activities include:
1. Creating new technician-level educational materials in plasma-aided manufacturing;
2. Designing a new teaching laboratory to support instruction in plasma technology; and
3. Training 40 two-year faculty in teaching plasma technology and manufacturing through workshops.

Representatives of local industries are consulting with the project to survey industrial needs, review developed materials, and provide direction for the project. The new curricular materials are being tested at cooperating community colleges.